Web-Based High-Energy Particle Physics Event Generation

The PI proposes a methodology for computing complex observables of vital importance to the High Energy Physics program at the Tevatron, the Large Hadron Collider, and any other future
collider and for providing the results through a web-based interface.
The event generators MadGraph and MadEvent which are being developed by the PI calculate all parton processes systematically and a very simple interface which Is usable by both experimentalists and theorists has been implemented. The program MadGraph allows one to draw all the relevant Feynman diagrams, and Mad Event allows the user to perform all the integrations over phase space relevant to the experiment one is interested in. These programs will provide a methodology for computing complex observables of vital importance to the High Energy Physics program at the Tevatron, the Large Hadron Collider, and any other future collider and for providing the results through a web-based interface.